An Image-Processing System for Lowell Observatory

Much of the research at Lowell Observatory is based on two-dimensional, digital images obtained at the Observatory, the National Facilities, and from spacecraft. This includes thirteen distinct research projects currently being pursued by Lowell research staff and collaborators. At present, the Observatory supports two Lowell-owned, Charge-Coupled Device (CCD) camera systems and a PDS microdensitometer. Additionally, five visitor CCD instruments, including three imaging cameras, a speckle interferometer, and a spectrophotometer, are normally resident in Flagstaff. Last year the Observatory allocated endowment funds for the purchase of a VAX-11/750 Central Processing Unit (CPU) and several peripherals. The National Science Foundation is now providing a grant for a major improvement of these facilities to allow efficient image-processing.